Mathematical Sciences: Nonclassical and Classical Algebra

This proposal is concerned with questions which arise from the desire to compute canonical bases for associative algebras. The principal investigator will develop a theory of Groebner bases founded on a vector space approach. He will study language- theoretic properties of a straightened basis and will use word combinatorics to simplify and bound algorithms. Finally, he will connect these new techniques to an older theory of p-filtrations as well as push an earlier, successful search for crystal invariants further. Given a finite dimensional algebra, every element of the algebra can be written as a combination of a finite set of elements which is called the basis. This basis is not unique. This project is concerned with finding a basis such that there is an effective method of determining what elements can be written as a combination of this basis. This work is an important step towards the use of computers in this field.